Some Fundamental Problems in Nonlinear Fracture Mechanics

The principle objective of this work is to characterize analytically the stress and deformation fields accompanying crack growth in ductile single crystals and deformation fields at interfaces joining a ductile material to a brittle one. The analytical results will be checked with full-field numerical finite element solutions, and also with experiments that correspond to the analyses. The aim is to devise local descriptions, incorporating single crystal plasticity, as a function of general remote loadings.